Applications of Weighted Least Squares

This project covers the development and analysis of new algorithms for weighted least-squares problems and their applications. In many practical applications, the weights vary by large factors, giving rise to ill-conditioned cases. In the past decade several authors independently proved a norm bound for this case of an ill-conditioned weight matrix. In previous work the PI followed up on this norm bound with the discovery of a stable algorithm for weighted least squares. ``Stable'' means that the accuracy of the algorithm is not affected by ill- conditioning of the weight matrix. The norm bound and the stable algorithm turn out to have several unexpected applications. For example, a new interior point method was discovered whose running time, unlike for all previous interior point methods, does not depend on the numerical data of the objective function. Also, a way was found to stably solve a class of finite element methods on which previously known algorithms would have failed. In this research project, weighted least-squares problems will be pursued along several lines: (1) iterative methods for weighted least squares will be developed, as well as improved sparse-matrix methods, (2) results for linear programming will be extended to semidefinite programming, (3) new algorithms will be invented for the highly nonlinear problems arising in electric power networks, which have at their core a generalized weighted least-squares problem, and (4) inverse finite element problems will be addressed. The outcome of this project will be more accurate and more efficient algorithms for optimization and simulation problems arising in science and engineering.